CAREER: DELPHIN: Functional Programming in Logical Frameworks

CCR-0133502
CAREER: Delphin: Functional Programming in Logical Frameworks
Carsten Schuermann

Data structures such as lists, trees, graphs, arrays along with
operations on them are one of the most studied concepts in computer
science and supported by most modern programming languages. Theorems,
proofs, and derivations on the other hand have elegant representations
in expressive logical frameworks but lead in general to complicated,
convoluted, and ultimately unreliable encodings even in modern
programming languages.

The proposed Delphin project engages in fundamental research on how to
bring together the computational features of programming languages
with the representational features of logical frameworks. In Delphin
programmers can write automated theorem provers, interpreters, and
compilers with elegant and compact data objects representing typing
derivations (for compilers), proofs (for proof carrying code), and
computation traces (for abstract machines). The proposed project
employs techniques from higher-order theories, dependent types,
meta-logical frameworks, and functional programming languages.

Delphin will shed some light on the epistemological tension between
abstract concepts and their representations; and it will provide
answers concerning their manipulation. Moreover, it will open up new
research areas of how to incorporate logical framework technology into
other mainstream programming languages such as Java and C#.